Teachers Empowering Teachers: Computers in Geometry Classrooms

This project of St. Olaf College is a two-year program to improve classroom teaching of geometry in secondary schools by empowering teachers to integrate modern computing technology into their instruction. The program will develop a cadre of master geometry teachers called the Teacher Action Group (TAG), from schools within sixty miles of St. Olaf. During the first year, the TAG members will attend workshops to enhance their subject matter, pedagogy, computer, and leadership skills. During the second year, the TAG members and the project staff will offer similar workshops to increase the size of the group prepared for implementation and outreach. Teachers in the larger group will come from schools located within 200 miles of St. Olaf. In all, one hundred teachers will participate in the project. The Mathematics Department at St. Olaf College enjoys an excellent national reputation and position of leadership in the general mathematics education community. St. Olaf College and the participating districts are contributing an amount equal to 37% of the National Science Foundation request.